CISE Research Infrastructure: Scalable Multimedia Information Processing

9625374 Aho, Alfred Columbia University CISE Research Infrastructure: Scalable Multimedia Information Processing This award is for the creation of a computer infrastructure that will enable realistic and practical demonstrations for future computing environments. The award will allow researchers at Columbia University to upgrade their storage, networking and processing capabilities to conduct interrelated research projects in four major areas: 1) High Performance Integrated Multimedia Information Systems; 2) Visual Information Processing; 3) Mobile Multimedia User Interfaces; 4) Scalable Systems for Mobile and Portable Computing. The requested research equipment, which is critical to support these research projects and will be treated as a shared resources, includes a data farm, a multimedia/visualization supercomputer, multimedia workstations, high-performance multimedia PC's and high-bandwidth networking hardware.